Integrating a Cogeneration Facility into Engineering Education

Interdisciplinary (99)

Cogeneration is an area of growing importance to the economic viability of many industries. This project integrates real-time data and analysis from a 25 MW cogeneration system into the Chemical and Mechanical Engineering curricula. This project enhances the understanding of cogeneration systems and power-related issues in undergraduate students. Additionally, it provides educational tools for the rapid analysis of such systems. Vertical integration of system operations throughout the curriculum provides exploration of global issues for senior undergraduate students. Tools are open source and utilize standard platforms for ease in future adoption by other institutions. The involved departments emphasize activities to effectively involve underrepresented student groups. Assessment activities include a team of experts in industrial cogeneration reviewing the developed materials. This project serves as a model for outlining methods to integrate real-time data into curricula at various levels of complexity.